Unique Geologic Association of Boron Skarn and Pb-Zn Skarn Mineralization in the Dal'negorsk Region, CIS

9526876 Meinert The Dal'negorsk skarn project presents an opportunity to apply American Academic expertise in the are of skarn deposits towards the study of an apparently unique geological setting containing both boron and lead-zinc skarn deposits. This research will investigate the genesis of the Dal'negorsk deposit and demonstrate the relationship between borosilicate and lead-zinc skarn mineralization in the district. Geological mapping, petrologic, mineralogic and fluid inclusion studies will test the working hypothesis that datolite and lead-zinc mineralization are genetically related to the same intrusive-hydrothermal events. A 1994 filed visit allowed for the collection of a significant skarn sample suite, but two tasks remain that can only be accomplished by a second field visit. The first is a minimum of two to three weeks of deposit and inter-deposit scale geological mapping. The second task is to examine in greater detail the relationship between igneous rocks and the two skarn types. Funding to cover transportation to the field site in the CIS.